Continuation of Research in High-Frequency Analog Electronic Circuits for Communication Systems

The research proposed here is in the area of monolithic high- frequency communication circuits and is directed at exploring new ways to use silicon integrated-circuit technology to improve the performance and reduce the cost of communication systems of various kinds with primary emphasis on data communications. Particular emphasis is placed on circuit techniques applicable to clock recovery in high-speed communications systems, optimization of the sensitivity in fiber-optic communication receivers, and the application of BICMOS technology for the particular needs of highıspeed communications applications. We feel that continuing efforts in this area are likely to produce results which will have significant impact on integrated-circuit design for communication systems.